Philosophical Significance of Symmetries in Mechanics

Project Abstract
SES Proposal 0135445
Philosophical Significance of Symmetries in Mechanics
Gordon Belot, New York University

This philosophy of physics project studies from a unified perspective three prominent problems in philosophy of physics-the question of relationalism about space and motion, the question of the nature and significance of gauge freedom, and the question of the content and implications of the principle of general covariance. The author intends, by setting these questions in the context of the mathematical theory of symmetry and reduction within geometric mechanics, to make possible sharp construals and investigations of conceptual and interpretative questions. He also hopes that treating these questions together within single framework allows for a fruitful delineation of the analogies and disanalogies in play at the technical level, as an aid towards making progress at the interpretative level. The intended result of the project is a book treating these topics.